Development of a Low Energy Neutron Scattering Facility-Interim Request

Prof. Baxter and his colleagues have proposed (in a group of separate proposals) to construct a Low Energy Neutron Scattering (LENS) facility at Indiana University. If constructed, this facility would have the potential for significant impact on neutron scattering in the United States: (1) It would help train the next generation of scientists who will use the Spallation Neutron Source. (2) It would provide a test facility for the development of neutron-scattering instrumentation. (3) It would provide an exploratory research tool for new scientific problems in soft condensed matter and biology that are inappropriate for tightly scheduled, large user facilities.

The purpose of the present proposal is to provide the Principal Investigators with support for continuing design and engineering studies while they are awaiting the review of the final proposal needed to begin the construction of LENS.